CAREER: Revealing electronic correlations in 2D superconductors, electronic crystals, and fractional Chern insulators with new scanning probes

Non-technical Abstract: This award supports research activities to better understand the role of electron-electron interactions in emergent electronic states in quantum materials. Gaining a better understanding of emergent electronic states such as those found in unconventional superconductors can guide the development of new materials and quantum devices with applications in sensing and in quantum computing. Materials which are atomically thin by nature are particularly accessible for realizing emergent electronic states since the states reside “at the surface”, giving researchers new ways to probe and tune them. Controlling a material’s local environment can directly impact how these states form and how they behave. Research in this project employs novel instruments and techniques to directly modify the local environment of such materials while probing their electronic states, and in turn helps to develop a better mechanistic understanding of how these emergent states form. Along with the broader impacts of the research activities, this project includes educational activities that offer training in quantum materials research. The project provides direct traineeship opportunities for undergraduate and graduate students as well as develops open-source hardware and STEM modules centered on providing hand-on experience with vdW assembly and electronic measurements.

Technical Abstract: This project studies electron correlations in 2D superconductors and topological states by in situ control of Coulomb screening and gating, with a particular focus on emergent superconducting states, electronic crystals, and fractional Chern insulators. The research team employs a homebuilt millikelvin scanning gate and scanning capacitance microscope with 2D planar probes that are tailored to interface with single-gated, open-face samples in order to quasi-locally tune electron-electron interactions. The project studies three distinct materials: magic angle twisted bilayer graphene, multilayer rhombohedral graphene, and twisted molybdenum ditelluride. These materials are probed by combining magnetotransport with scanning gate and scanning capacitance measurements in order to (1) systematically tune long-range Coulomb interactions via control of probe-sample distance, (2) create movable tunnel barriers/quantum point contacts to probe anisotropic transport behavior, and (3) investigate gapped electronic states